Improving Undergraduate Instruction with High Pressure Liquid Chromatography and Atomic Absorption

The Chemistry Department at Rhode Island College has recently acquired a high pressure liquid chromatograph (HPLC) and a computer interfaced atomic absorption (AA) spectrometer for use in improving undergraduate instruction. With these additions, students are exposed to a wider range of the instruments used in modern research and industrial laboratories and gain experience in using these instruments to increase their problem-solving skills. Analytical skills are being developed which will help prepare students for graduate school or careers in chemistry and other sciences.